Portable Flow-Through Amperometric Immunosensor Device for Fast Field Immunoanalysis of Rodent Viruses

The main objective of the proposed research is to develop a prototype of a sensor device based on immuno-interactions or rapid, automated, quantitative determination of viral infections in small mammals. As a result of this development several functioning immunoassay devices will be tested in environmental biology field studies of Hantavirus (Sin Nombre Virus) infection in mice populations in the wild. The work initially will be focused on the optimization of an immunosensor for fast (10-20) min. determination of virus and will be extended towards the development of an semi-automated portable immunoassay system to be used in field stations or other remote sites. The proposed immunosensor utilizes highly dispersed carbon material. The conductivity of carbon materials permits its use as electrode materials for electrochemical detection and at the same time as carrier for the immuno-chemicals. The immunosensors proposed will be developed using disposable flow electrodes and offer a means to conduct fast ELISA (Enzyme Labeled Immunosorbent Assay) with an electrochemical detection. The proposed research will result in prototype portable immunoassay system consisting of miniaturized, automated and electronically controlled and self-contained hand-held devices to be used in environmental biology studies. A combination of descriptive and analytic studies of environmental characteristics associated with rodent Hantavirus prevalence will be used as the initial test of the immunoassay system. These analyses require fast and reliable instrumentation suitable for operation in field conditions or in a remote setting. The immunosensors can also be used for rapid analyses in conventional conditions of biological, physiological and analytical practices.